Positivity, Inverse Problems, and Operator Theory

The project is centered on the study of mathematical aspects of inverse
problems, from the point of view of functional and complex mathematical
analysis. Statistics, spectral analysis, X-ray crystallography, tomography
offer models and classical examples of such questions. More specifically,
most of the modern inverse problems are related to (power, Fourier, wavelet)
moments of mass distributions. In their turn, moment problems form a well
established field of research with a fascinating history of about
two centuries. The project focuses on specific moment problems arising in
shape and volume reconstruction from distant measurements (for instance of
electric or gravitational fields). An important component of the project is
the study of the best approximation and the error bounds related to
reconstruction algorithms.

The success of previous researches of the principal investigator on similar
two dimensional questions guarantee positive results in his attempt to expand
his horizon to three or more dimensions. He will collaborate with several
experts in pure and applied mathematics, as well as with graduate students and
young research assistants. Their combined efforts and results will be
significant for present studies in functional analysis, function theory and
numerical mathematics, as well as for some specific branches of applied
mathematics and engineering.